MRI: Acquisition of an NMR Spectrometer to Sustain Excellence in Undergraduate Research

With this award from the Major Research Instrumentation Program (MRI) and support from the Chemistry Research Instrumentation Program (CRIF), Professor Paul Bonvallet from College of Wooster and colleagues Judith Amburgey-Peters, Mark Snider, Sarah Sobeck and Spring Knapp have acquired a 400 MHz NMR spectrometer equipped with a broadband probe. This spectrometer allows research in a variety of fields such as those that accelerate chemical reactions of significant economic importance, as well as the study of biologically relevant species. In general, Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the study of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution or in the solid state. The results from these NMR studies have an impact in synthetic organic/inorganic chemistry, materials chemistry, forensics and biochemistry. This instrument is an integral part of teaching as well as research performed by undergraduate students via independent student research and traditional academic coursework.

The award is aimed at enhancing research and education at all levels, especially in: (a) synthesizing small-molecule analogues of the phospholipid phosphatidylserine; (b) designing supramolecular chemistry of light-activated molecular containers, (c) studying dehydrogenative coupling reactions to improve atom economy in organic synthesis, (d) studying diastereoselective syntheses using multi-component reactions, (e) elucidating enzymatic mechanisms in nicotinate biodegradation by aerobic bacteria, and (f) probing the influence of the molecular environment on the photochemistry of ultraviolet absorbers.